NER: Single-Molecule Wires and Electronic Devices Based on Dimetal Complexes Containing Metal-Metal bonds

The objectives of this research are to design, fabricate, and test molecular wires, and singlemolecule
electronic devices, in particular diodes, light-activated switches and transistors, based
on dimetal inorganic complexes containing metal-metal bonds. These metal complexes provide
better control and tunability of electron transport properties as compared to organic molecules
used in molecular devices to date. The approach is to incorporate these complexes into various
two- or three-terminal nano-junctions formed by nanolithography, and to measure their electron
transport characteristics, such as rectification and amplification. The educational component
includes a jointly developed and co-taught course to train students in molecular electronics
during Spring 2005, as well as a one week summer workshop on instrumentation techniques.
The miniaturization of current silicon-based electronic devices is approaching a limit set by
physical and economical constraints. Alternative technologies, such as molecular electronics, are
required to overcome this limit and increase computation speed. Here, molecules are utilized as
conventional electronic devices. The research proposed herein explores the feasibility of using
dimetal inorganic complexes as components in molecular electronics. If successful, the proposed
research will open new avenues for designing molecular electronic devices and will provide
insight into the electron transport of molecules. The interdisciplinary nature of the proposed
research will provide students with opportunities to communicate with researchers from different
fields. The nanoscale characterization and fabrication proposed in the research will give students
hands-on experience in using state-of-the-art equipment commonly used in nanoscience and
technology. This will better prepare them for careers in this exciting research area.